A Search for Gravitational Radiation at LIGO: Oregon Experimental Relativity Group

During the next three years, the Oregon Experimental Relativity Group
will collaborate with the LIGO Scientific Collaboration, on the search
for gravitational radiation with LIGO. Specifically, the Oregon group
will play a large role in the development of an understanding of the
environmental noise sources which would otherwise limit the sensitivity
of LIGO. Environmental noise includes subtle effects such as stray
magnetic field and cosmic ray interactions with detector elements which
may limit LIGO's sensitivity after the initial phase of operation. The
Oregon group will develop the environmental monitoring capabilities of
LIGO in the the areas of weather monitoring, magnetic fields, seismic
characterization, cosmic ray studies, and gravity-gradient noise. They
will develop analysis techniques, analyze interferometer data sets, and
investigate the influence of these environmental factors on data. They
will search for gravity wave signals, including signals correlated with
gamma ray bursts.

With the construction of LIGO, a new era of sensitivity to
gravitational radiation will begin. After LIGO commissioning, the
first experiments attempting detection of the effects of gravity waves
on the strain measurements in the LIGO interferometers will need
careful analysis of noise-dominated data streams. This will require a
careful characterization of the noise, including the many sources of
environmental noise, and the correlation of these noise sources among
interferometers.